International Engineering Education Conference

ABSTRACT INTERNATIONAL ENGINEERING EDUCATION CONFERENCE Southern Illinois University at Carbondale (SUIC) Graduate School and College of Engineering will hold an International Engineering Education Conference in Chicago, Illinois on August 14-15, 1997. This will be followed by a bilateral workshop with the US and Taiwan delegates in Carbondale, Illinois on August 17, 1997 The Conference will review recent advances in engineering education around the world. Conference sessions will focus on collaborative partnership approaches in course and curriculum development. The integration of research and education, of design in the undergraduate curriculum, and of experiences in the use of multimedia courseware materials will be highlighted in the conference sessions. The Conference will cover topic areas that are well suited to international participants, including the globalization of engineering and international competitiveness. ??